MRI: Acquisition of a 400 MHz NMR Spectrometer

With this award from the Major Research Instrumentation Program, Professor Paul Baures from Keene State College and colleagues Brian Anderson, James Kraly, Richard Blatchly and Denise Junge will acquire a 400 MHz NMR spectrometer. The proposal is aimed at enhancing research and education at all levels, especially in areas such as (a) medicinal chemistry research on inhibitors of Mycobacterium tuberculosis and cholera; (b) conformational analysis of imidazole-4,5-dicarboxylic acid (I45DA) derivatives; (c) development of nature-inspired antifreeze coatings; (d) peptide-lipid self-assembly; (e) structural characterization of resveratrol isomers and derivatives; (f) synthesis and characterization of ionic liquids; (g) synthesis and mechanistic studies of metal catalysts; (h) synthesis of dopamine D1-agonists; and (i) studies of structure-function relationships of inorganic complexes.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic/inorganic chemistry, materials chemistry and biochemistry. This instrument will be an integral part of teaching as well as research not only at Keene State College but also at Saint Anselm College and other neighboring institutions and local industrial partners.